Coherent Control of Continuum Quantum Processes

This award focuses on the use of strong electromagnetic fields to achieve control over processes involving the interaction of intense laser light with atoms and negative ions. Control of high-order harmonic generation, energies, intensities, and angular distributions are considered using hallf-cycle pulses.